The High Speed Centrifuge in Biochemistry and Biology

The Department of Chemistry is purchasing a high speed centrifuge for use by both chemistry and biology students. Introductory biology students isolate chloroplasts from plant tissues in order to gain an understanding of biochemical life processes via study of the Hill reaction. Biochemistry students are focussing on enzymology. For example, they isolate the enzyme ribulose bisphosphate carboxylase from spinach leaves preparatory to the investigation of its catalytic action and inhibition by various substances. The equipment is also being used by students undertaking individual research projects.